Mathematical Sciences: Scattering Theory for Linear and Nonlinear Equations

This project will focus in three main directions of scattering theory, namely: a) understanding scattering poles, b) the Keller-Rubinow conjecture, and c) understanding the propagation of conormal singularities for semilinear wave equations in domains with diffractive boundary. These are basic theoretical studies whose results will impact technologies such as tomography and pattern recognition.